Optimal Macroeconomic Policy in General Equilibrium Models

A fundamental question in macroeconomics is how should fiscal and monetary policy be set, both on average, and in response to business cycle shocks. This question is addressed in quantitative, general equilibrium models of business fluctuations. This project studies models with shocks to technology and government consumption, models of nominal wage contracting and models with heterogeneous agents. Models are also analyzed in which the government cannot commit to its future policies. The optimal policies in these models provide quantitative guidance on how fiscal and monetary policy should be conducted over the business cycle. For example, the results will indicate how big the government deficit should be and how stimulative monetary policy should be in a recession. Economic growth rates are substantially affected by the rate of adoption of new technologies and the rate of displacement of old ones. Typically, there is a long lag between the availability of a new technology and the time when its use becomes widespread. This phenomenon is known as diffusion. This project examines some of the principal factors determining the rates of diffusion of technology. The research provides a deeper understanding of the forces determining growth, the diffusion of new technologies and the decay of old ones. The properties of models of the monetary transmission mechanism are also investigated. This part of the project should improve our understanding of the key features of the interest rate, output and employment effects of monetary shocks.